Travel to Attend: International Assoc. for Bridge and Structural Engineering & International Congress of Polymers in Concrete-Paris, France & Brighton, England-September 1987

This travel grant provides for Dr. David Fowler, of the University of Texas, Austin, to present a paper, "Polymer Concrete for Construction and Repair of Bridges", representing the American Concrete Institute Committee 548 at the International Association for Bridge and Structural Engineering (IABSE) at the Paris, France, meeting on September 2-4, 1987. Dr. Fowler will also present papers in Brighton, England, on September 21-24, 1987, at the International Congress on Polymers in Concrete, of which he is currently president.